Bridging Research and Practice in the MSPs: Technical Assistance for Use of Research and Data-Based Decision Making

This design proposal for technical assistance has three focus areas aimed at helping technical assistance providers: 1) identify bodies of research and best practices and translate these findings to the specific needs of the MSPs; 2) work with MSP leaders to use existing and newly collected data about the MSPs to inform their decisions; and 3) help create and sustain a national capacity and supportive community for the MSPs.